Mini-Supercomputer for the Investigation of the Geomagnetic Field and the Geodynamo

9317156 Bloxham This award provides one-half of the funds required to purchase computing equipment to be installed and operated in the Department of Earth and Planetary Sciences at Harvard University. Harvard is committed to providing the remaining funds necessary to acquire the equipment. The computer will be used primarily to serve the research needs of the department's geophysics group whose projects include numerical modeling of the Earth's geodynamo, theoretical calculations of magnetohydrodynamics, and interpretations of the Earth's geomagnetic field. ***